SHF: Medium: Collaborative Research: Program Analytics: Using Trace Data for Localization, Explanation and Synthesis

Formal program analyses have long held out the promise of lowering the cost of
creating, maintaining and evolving programs. However, many crucial analysis
tasks, such as localizing the sources of errors or suggesting code repairs, are
inherently ambiguous: there is no unique right answer. This ambiguity
fundamentally restricts the wider adoption of formal tools by limiting users to
those with enough expertise to effectively use such ambiguous results. The key
insight is that data-driven machine-learning approaches, which have proved
successful in other domains, can be applied to the data traces generated by
programmers as they carry out development tasks. This research addresses the
challenge of ambiguity by extending classical program analysis into modern
program analytics. This extension enhances classical symbolic methods with
modern data-driven approaches to collectively learn from fine-grained traces of
programmers interacting with compilers or analysis tools to iteratively modify
and fix software.

The research systematically develops program analytics by pursuing research
along two dimensions: language domains and programming tasks. First, it studies
different language domains, from dynamically typed languages (Python), to
statically typed functional languages with contract systems (Haskell), to
interactive proof assistants (Coq). Second, it targets different programming
tasks, from localizing errors like null-dereferences, assertions or other
dynamic type failures, to static type errors, to completing or fixing code to
eliminate an error or to obtain some desired functionality. This approach takes
advantage of a suite of new approaches that harness recent advances in
statistical machine learning and fine-grained, domain specific programmer
interactions. These advantages allow the research to address the fundamental
problem of ambiguity in classical program analysis. This has potential to
transform software development by yielding a new generation of program analysis
tools that are efficient, applicable, and automatically customizable (e.g., to a
particular company, project, group or even individual).